Collaborative Research: The Role of Flocculent Organic Sediment Transport as a Feedback Mechanism that Controls Landscape Dynamics and Restoration Success in the Everglades

The proposed research tests the hypothesis that sediment transport dynamics play a role in
controlling the topographic patterning that is crucial to the ecology of the ridge and slough landscape in
the Florida Everglades. Namely, under historical flow conditions, it is hypothesized that sediment
redistribution from open-water slough to vegetated ridge regulated ridge width but that, with drainage and
compartmentalization of the Everglades, the magnitude of redistribution has decreased, permitting
expansion of ridges into open-water sloughs and loss of topographic heterogeneity.
Project hypotheses will be tested through a combination of field and laboratory experimentation
and numerical modeling of the mass and momentum balance equations governing flocculent sediment
transport dynamics and flow in vegetated environments. Experimental analysis of floc transport
mechanics will describe the critical shear stresses and turbulence intensities that entrain size classes of
floc in a deposited bed, equilibrium aggregate size distributions and concentrations resulting from flow
with different shear parameters, aggregate settling velocities, and changes in turbulence and flow profiles
that occur across a ridge/slough cross-section as a result of vegetation and microtopography. To this end,
flow monitoring and a series of transport experiments and tracer tests using natural floc will be performed
in laboratory and field flumes. Funds will also sponsor the execution of complementary science fair
projects by Forest Hill High School environmental science magnet program students, which will focus on
using a rapid-assessment optical technique for developing an organic matter mixing model across a
ridge/slough transect (which can be used as a validation measure for the sediment transport model) and on
elucidating the effects of ambient water quality on flocculent organic sediment transport properties.
Intellectual merit. The proposed research builds upon previous research showing the existence of
sediment redistribution from open-water channels to vegetated environments by producing a model to
predict the magnitude and spatial distribution of sedimentation as a function of flow velocity and water
level. In the Everglades, sediment occurs primarily in the form of organic floccules, the mechanics of
which are not well understood. Similarly, although flocculation plays a dominant role in the suspended
sediment dynamics of rivers, wetlands, and estuaries throughout the world, studies on the impacts of flow
through vegetated environments on sedimentation and transport of floccules and predictive models of floc
dynamics on landscape morphology and evolution are nonexistent. This research develops a set of
laboratory and field experiments designed to address the critical questions about floc transport mechanics
required for model development and an original model of how these mechanics influence landscape
evolution. Thus, the proposed research will set a precedent for improved predictions of sediment
transport and landscape dynamics that will have implications for estuarine science, fluvial
geomorphology, wetlands science, and contaminant transport.
Broader impacts - Results of this project will be broadly disseminated to (1) researchers in the field,
through organization of a special session at an ASLO meeting on implications of flocculant sediment
transport for landscape dynamics and subsequent publication of a special journal issue, to (2) policy
makers involved in implementation of the Comprehensive Everglades Restoration Plan through regular
participation of the PIs in Landscape Subteam meetings and the Greater Everglades Ecosystem
Restoration conference, and to (3) the general public, through publication of a popular science article on
Everglades landscape dynamics. Further, model results will impact policy and society by leading to
improved recommendations of flow velocities and hydroperiods that should be implemented to restore the
ridge and slough landscape. Enhanced infrastructure resulting from the purchase of a laser diffraction
particle size analyzer will benefit classroom demonstrations, laboratory, and field research at the K-12,
undergraduate, and graduate levels. Research efforts will also enhance collaborative efforts between the
USGS, University of Colorado, and K-12 education and will synergistically complement an existing
USGS project on biogeochemical feedback mechanisms and nutrient transport within the ridge and slough
landscape. Finally, this research enhances the knowledge transfer to future generations of scientists
through a committed partnership with the environmental science magnet program at Forest Hill High
School in West Palm Beach, Florida and by providing research support to a current Ph.D student.